CAREER: Planning, Execution, and Learning in Autonomous Agents

IRI-9502548 Veloso, Manuela Carnegie-Mellon University $45,000 - 12mos CAREER: Planning, Execution, and Learning in Autonomous Robotic Agents Autonomous robotic agents need the ability to plan for and achieve high-level tasks. Current agents can achieve low-level execution goals such as object avoidance, but lack the ability to reason about and to carry out multiple interacting tasks. Integrating planning and execution by a robot is a complex task, requiring learning from prior experience to improve significantly the overall capabilities of the intelligent agent. We will explore the integration of planning, execution, and learning, where the robot's successes and failures are incorporated into a knowledge base to improve future goal-achievement performance. This project entails the investigation of a variety of system and knowledge engineering issues, including: communication between the planner and the executor; interaction between the robotic agent, the planning system, and the human user who may, at any time, request that certain tasks be performed; and gathering and interpretation of information to learn from experience. The scientific goal underlying this research is to understand the use of past experience to solve problems in complex situations affected by multiple factors with different degrees of controllability and interdependency. Even partial achievement of this goal could be of great significance to both the robotics and cognitive science or artificial intelligence research communities, bridging the representation and reasoning gap between high level planner-learner and autonomous agent executing tasks in the real world